Remote Dissociation of Halogens and Interhalogens onto Low Work Function Surfaces

This research project, supported by the Analytical and Surface Chemistry Program, explores the interaction of halogen molecules with the well characterized Al(111) surface. It is particularly concerned with the abstractive dissociative adsorption which can occur with halogens, especially interhalogen molecules. Professor Kummel and his students at the University of California at San Diego will combine molecular beam scattering and scanning tunneling microscopy methods to probe the detailed dynamics of the interaction of these molecules, with a view to understanding the long range charge transfer process which accompanies dissociative adsorption. Oriented beam methods will also be used to probe the interaction of pendular states of the interhalogens with the low work function aluminum surface. An understanding of the dissociative adsorption of simple, high electron affinity molecules such as chlorine when interacting with low work function metals such as aluminum is the focus of this research project. Probing the dynamics of this interaction using scattering and surface microscopic methods will provide information about the mechanisms of these reactions, which are important in the processing of electronic materials, and in corrosion processes.